CAREER: Translinear Adaptive Filtering

Portable computer and communication systems are all around today and
they will only become more prevalent in the days to come. The design of
such mobile electronic systems involves a number of significant engineering
challenges. Because they operate from batteries, they must both consume
very little power and operate on a low power-supply voltage. Moreover,
because they are always on the move, such systems must be able to
dynamically adapt their performance to an ever-changing environment. This
research involves the development of a unified framework for systematically
designing and implementing efficient adaptive signal-processing systems
that consume very little power and can operate on a low power-supply
voltage with applications in the areas of mobile communication systems and
enhanced human-computer interfaces.
The class of dynamic translinear circuits implements the feed-forward
signal processing functions needed for continuous-time linear, polynomial,
and rational-function adaptive filters with very few devices. Such
circuits are capable of operating with low power consumption and on a low
power-supply voltage. This research involves the design an implementation
of continuous-time linear and nonlinear adaptive filtering algorithms with
dynamic translinear circuits with applications in the areas of mobile
communication systems and enhanced human-computer interfaces. The primary
focus of this research is on the efficient hardware implementation of such
adaptive filters, assessing how device nonidealities and noise impact
system performance and developing robust architectures and adaptive
algorithms.